RII Track-2 FEC: Artificial Intelligence on Sustainable Energy Infrastructure Network (AI SUSTEIN) and Beyond towards Industries of the Future

A sustainable energy supply is a critical driver for our nation’s continued industrial and economic growth. Therefore, it is necessary to make current and future energy infrastructures more responsive and resilient. This Research Infrastructure Improvement Track-2 Focused EPSCoR Collaborations (RII Track-2 FEC) award, led by North Dakota State University with collaborators: University of Arkansas - Fayetteville, University of Nevada - Las Vegas, and Nueta Hidatsa Sahnish College, aims to enhance technological progress and economic growth of the jurisdiction states and the nation, while creating a new generation of workforce ready for the era of AI. The unique challenges faced by the jurisdiction states, including dispersed populations, extreme weather conditions, weak positions in energy networks and/or agriculture-based economies, motivate the team to explore an AI-based framework capable of identifying the vulnerable elements in the energy and related infrastructure networks, quantifying the health of the energy infrastructure, and providing automated resilience strategies against the impacts of catastrophic failures for a secured energy supply. This project will overcome critical regional and national issues related to vulnerable energy systems by creating holistic solutions against the negative impacts of energy disruptions on complex interdependent infrastructure networks via the exploration of innovative AI, engineering, economics, and operations research methodologies. The interdisciplinary team, consisting of experts in industrial engineering, civil and environmental engineering, computer science (especially AI), electrical engineering (especially power systems), public policy and economics, will explore the related methodologies that will be widely disseminated and implemented in a broad cross-section of industries where AI can contribute. The collaborative effort will promote AI as an industry of the future and generate immediate tangible impacts on industries in desperate need of an AI-proficient workforce by offering an AI-related associate degree and minor programs. The team will also support early career faculty, postdocs, graduate and undergraduate students, especially Native American and Hispanic participants from tribal and minority serving institutions.

The intellectual merit goal of the Artificial Intelligence on Sustainable Energy Infrastructure Network (AI SUSTEIN) is to establish a collaborative research program to investigate the potential of AI as a driving force for bringing about radical changes to critical infrastructures and industries. AI SUSTEIN will conduct the following research activities: (1) understand and quantify the interdependency in infrastructure networks and perform risk and economic impact assessment on both the industrial and economic aspects using AI; (2) develop a decentralized AI-based health monitoring and failure prediction system of energy infrastructure using real-time data; and (3) create a strategic framework for improving the resilience of energy infrastructure and local industries via AI-enhanced maintenance planning, optimization, and decision-making. The broader impact goals of AI SUSTEIN are to 1) serve as a vital source of information and resources; 2) partner with all the stakeholders especially industries to ultimately form a research center in AI and data analytics, and 3) develop diverse workforce and empower them with necessary AI skills. AI SUSTEIN will engage in the following workforce development/educational efforts: (1) develop an interdisciplinary team-taught course on AI and data analytics in critical infrastructure and provide research training to students from tribal and minority serving institutions; (2) mentor and support junior faculty; (3) create and offer a technical assistance program for infrastructure industry on AI and big data approaches for real-time condition monitoring, maintenance planning, and reliability issues and partner with the industries to secure their commitment and support for establishing an NSF Industry-University Cooperative Research Center; and (4) facilitate and coordinate the formation of an associate degree program on AI at a tribal college and offer an AI minor at the participating universities.